A Unified Approach to Testing and Verification of Designs Synthesized from High-Level Specifications

This research develops a unified framework for the test problems related to
design verification and manufacturing tests. The design verification
problem translates to the reachability problem in an extended finite state
machine (EFSM) derived from the register-transfer-level specification.
Design-verification tests correspond to input-output sequences tracing
paths in the EFSM representation. They are derived by solving linear and
nonlinear constraints involving data registers, internal buses, and primary
inputs. Several search strategies for constraint solving are being explored
based on our result that closed form solutions to linear constraints can be
computed in polynomial time. Manufacturing tests are obtained by fully
expanding partially specified verification vectors so as to achieve maximum
coverage of faults in the gate-level circuit description. The verification
and test sequences can be iteratively refined through feedback. The
contributions of this research include modeling tools for complex circuits,
algorithms for constraint- solving problem, and new measures of fault
coverage.